Miniaturized Three-Dimensional Laser Range Finder for Robotic Manipulation of Industrial Objects

This project will develop a miniature 3-D laser range finder integrated with a robot gripper. Such a system could be used for visual perception and manipulation of objects in unstructured environments. Phase I will develop the sensor for use in a wide variety of manufacturing applications. Phase II will study sensor placement strategies and produce a complete working prototype. Applications of this intelligent sensory system may include manufacturing automation, sensor-guided robotics, and object tracking, allowing for extremely complex sensorimotor tasks.